III-Small-COR: Automatic Construction of Artifact-based Workflows

This project is developing a new foundation for workflow and business
process management, called the "artifact-based semantic workflow model",
and working in this context to develop new theoretical results,
techniques and algorithms for specifying, designing, evolving, and
implementing workflows. The new foundation is based on two fundamental
premises. The first is to use the artifact-based approach to workflow
pioneered at IBM Research. This approach is data-centric rather than
process-centric, and allows to structure workflows according to the
desired life-cycle of key business artifacts (or entities) that are
manipulated by a workflow. The second premise is to use techniques from
semantic web services to enable the declarative specification of
workflows based on the semantics of the workflow services (or tasks) to
be performed and underlying goals of the business managers. This is
fundamentally different from most current approaches to workflow
specification, which are procedural.

A major thrust of the proposed
research is to develop technical results (e.g., techniques, algorithms,
and tools) to enable the automated construction of workflows, starting
from from a specification of the artifacts to be manipulated, the
individual services that might be applied to them, and a goal to be
achieved (expressed using a logic formula rather than as a flowchart).

More information can be found from the project web page
(http://www.cs.ucsb.edu/~su/NSF/0812578).